Wind-Shear-Driven, Closed-Current Dynamos within Midlatitude Sporadic E

In this project, funds are requested for a two-year research program to investigate basic plasma processes that seem to be responsible for the surprisingly strong energetics that have been observed in the midlatitude E region. The research plan is to utilize a numerical model of the phenomenon already developed by the PI to model realistic distortions of an Es layer, apply the results to the design of radar experiments at SRI, and to the design of the SEEK-2 rocket campaign, in order to determine if the model can explain the experimental findings.